Aqueous-Phase Photochemical Oxidant Formation in Clouds, Fogand Rain

Sunlight drives the chemistry of the atmosphere by forming reactive species through photochemical processes. Several photochemical processes for gases in the atmosphere are well- known to be important to the foundation of smog and acid rain, for instance. Less understood is the role and importance of photochemical processes in the natural waters of the atmosphere, i,e, clouds, fog and rain. The objective of this project is to characterize, geographically and temporally, the formation of reactive oxidants in these atmospheric aqueous systems. The project will monitor the oxidation of chemical traps that are selectively sensitive to particular oxidants so that oxidants formed in atmospheric waters can be identified and quantified. The results will provide a data base on the photo-oxidants that are formed in atmospheric waters. This data base will assist the modelling of atmospheric oxidation and lead to improvements in the understanding of the atmospheric cycling of sulfur and organic compounds.